Techniques for Fault-Tolerant Communication in Parallel Computers

The project studies techniques for performing efficient communication in parallel computers that have faulty components. Parallel computers with a large number of identical processors have a great potential for fault-tolerance. The main challenge that must be overcome in order to exploit this potential for fault- tolerance is the fact that faults also affect communications between processors. Hardware faults in processors, routers, and communication links force messages to take new paths that avoid the faulty components. In addition, the mapping of computations from faulty processors to nonfaulty ones changes the pattern of communication. As a result, faults can have a major impact on the performance, and even correctness, of the communication subsystem in a parallel computer. Specifically, the project focuses on the following two key issues; creating efficient, deadlock-free routing algorithms for parallel computers with faulty components, and developing efficient mappings of communication-intensive real-time applications to parallel computers that contain faults. This research will result in more efficient use of parallel computers and a better understanding of how their inherent potential for fault-tolerance can be utilized.